Illuminating Reaction Pathways with Innovative Probe Techniques in Supersonic Flows

Professor Arthur Suits at the University of Missouri–Columbia is developing and applying new spectroscopic methods that bring high sensitivity and quantum state resolution to reactions involving short-lived radicals at low temperatures in supersonic flows. Most important reactions involved in combustion, atmospheric chemistry, and interstellar environments are driven by highly reactive, transient intermediates whose behavior depends sensitively on their internal energy and quantum state. However, these transient species are notoriously difficult to detect and characterize under controlled laboratory conditions. Professor Suits and his students will advance uniform-flow photoacoustic spectroscopy as a universal infrared probe capable of detecting reactive intermediates in cold, uniform flows. They will use chirped-pulse Fourier-transform millimeterwave spectroscopy to investigate vibrational and nuclear-spin–state–selected reactivity of radicals at low temperature to test emerging theoretical models of non-statistical and modeselective dynamics. Their studies will reveal how vibrational energy, nuclear-spin symmetry, and molecular complexity influence reaction pathways, providing critical benchmarks for theory and improving models of chemistry in diverse environments ranging from combustion systems to interstellar clouds. The project will also provide interdisciplinary training for students and expand access to advanced spectroscopic techniques through education and outreach activities.

The proposed research develops and applies two complementary experimental platforms to probe low-temperature radical kinetics with unprecedented sensitivity and state resolution. Uniformflow photoacoustic spectroscopy (UF-PAS) will be advanced as a universal infrared detection method capable of monitoring reactive intermediates in cold supersonic flows, overcoming limitations of traditional optical probes for species lacking strong electronic transitions. In parallel, chirped-pulse Fourier-transform millimeter-wave spectroscopy in uniform flows (CPUF) will enable broadband, quantum-state–resolved detection of radicals and products, including vibrational, conformational, and nuclear spin–isomer specificity. These approaches will be applied to investigate vibrational-state–dependent reactivity, nuclear-spin–dependent kinetics, and conformer-specific reaction dynamics for a range of radicals relevant to combustion and astrochemistry, including CN, CCH, propargyl, and vinoxy systems. The work will explore how barrierless reaction dynamics are governed by long-range interactions, energy redistribution, and symmetry constraints, providing stringent tests of emerging theoretical models. By integrating experiment with high-level theory, the project will establish new mechanistic insight into low-temperature chemical dynamics and generate quantitative data for modeling complex reactive environments.